SUPPORT SERVICES FOR INFORMAL SCIENCE EDUCATION PROGRAM - TASK ORDER NO. 41 TO CONTRACT DGC-9216105

This award is for the National Biosystems, Inc., who are the contractors for the Informal Science Education Program panel meeting. ***